Symposium on Better Ceramics through Chemistry VI, 1994 MRS Spring Meeting, San Francisco, CA

9412765 Ballance This grant supports the "Better Ceramics through Chemistry" Conference to be held at San Francisco, CA, April 4-8, 1994. This conference brings together materials scientists, chemists and ceramists to address a wide range of chemical approached to the synthesis of ceramics or ceramics precursors and their associated processing to form films, fibers, powders etc. with precisely controlled compositions & microstructures. The technical program will cover over 250 papers in these areas. The requested funds are $5000 to support graduate student participation. %%% "Better Ceramics through Chemistry" is a vital issue for high quality, reliable and reproducible ceramics & ceramics based electrical and structural components. The conference provides an opportunity to graduate students to get familiarized with this important area of materials science of the future high tech. ceramics. ***